Multi-Photon Ultrafast Quantum Optics

This research program utilizes multiple highly correlated photons to study features of quantum interference and entanglement. The photons are generated in precisely timed parametric down converters. The availability of quantum sources that have a classical timing signal makes possible experiments that exhibit new effects that can be ascribed to a single excitation of a quantum field. A number of different projects are targeted, including measuring the wave function of a single photon and testing conclusions of local hidden variable theories.